Annual Research Symposium on Minority Achievement, September 2004 and September 2005, Maryland Institute for Minority Achievement and Urban Education

The Maryland Institute for Minority Achievement and Urban Education (MIMAUE)

The Maryland Institute for Minority Achievement and Urban Education (MIMAUE) proposes to conduct Annual Research Symposiums on Minority Achievement. The first symposium scheduled for September 2004 with the theme: Optimizing Mathematical Achievement for All Students. The second symposium scheduled for September 2005 will focus on the critical themes: Optimizing Science Achievement for All Students; Academic Factors that Influence Mathematics and Science Achievement; Social and Emotional Factors that Influence Mathematics and Science Achievement. The MIAMUE Annual Research Symposium will become a national event to be held every September and will bring together the top national researchers around a theme of importance to promoting high achievement among minority students and of children in urban settings.